Singular Control of Diffusion Processes and its Applications to the Models of Economic Dynamics

ABSTRACT

SINGULAR CONTROL OF DIFFUSION PROCESSES
AND ITS APPLICATIONS TO THE MODELS OF ECONOMIC DYNAMICS

The proposed research lies within the area of optimal
stochastic control. It deals with optimal control of
diffusion processes by means of singular with respect
to time functionals. This type of control naturally
appears in the problems in which there is no natural
restriction on the rates of control and as a result
the optimal control rate is infinite. The optimal
policy in these types of problems is to reflect the
process from an a priori unknown boundary. Such type
of action also arises in problems with additive control,
as an approximation for a "bang-bang" optimal policy.
The proposed research consists of developing the theory
of the related Partial Differential Equations with gradient
constraints, studying optimal reflecting barriers and
optimal policies in one dimensional and multidimensional
cases. Applications include stochastic control models
of flexible manufacturing systems as well as dividend
optimization and multidimensional portfolio optimization
models. It is also intended to consider application of
the singular stochastic control theory to optimization
problems in insurance. We will also study stochastic
control models of large economies and analysis of the
relationship between the general framework of the no
arbitrage asset pricing in mathematical finance and the
equilibrium paths in those models.

In addition to developing new stochastic control and stochastic
processes theory, the applications of this research would
include devising better models for optimization of the
manufacturing processes and outputs. In addition our research
would also result in developing new optimization models
in mathematical finance and insurance. While perceived by
many nonspecialists as a tool for making a fast profit,
mathematical finance in fact is a "technology" for risk
reduction. In this regard its merge with insurance is only
too natural. The issues of controlling the risk as well as
insurance aspects of the financial risk has loomed large
recently in both financial markets as well as in the insurance
industry. The importance of optimization in devise of the
policies employed by insurance and financial institutions
is hard to overestimate. Exposure to unnecessary economic and
financial risks and failure to employ the optimal procedures
may have serious economic and social impacts. Our research
deals with development of mathematical models of optimal
risk control techniques for financial and insurance corporations.
This will also enable one to get a better insight into the
nature of the optimal risk reduction techniques a publicly
traded financial corporation should adhere to, as well as the
optimal dividend distribution policy it should follow.